Theoretical Frameworks for Ecological Dynamics Subject to Stoichiometric Constraints

Kuang
0077790
All organisms are composed of multiple chemical elements
such as carbon, nitrogen, and phosphorus. Recent research in the
area known as ecological stoichiometry has highlighted the
ecological importance of the relative abundance of chemical
constituents, known to vary considerably among species and across
trophic levels. However, most theoeretical studies in ecology
have until very recently ignored the sources and consequences of
this chemical heterogeneity. The investigator and his colleagues
undertake theoretical investigations of ecological stoichiometry.
They develop a relatively new theoretical framework for
ecological dynamics that explicitly incorporates stoichiometric
constraints. This base model involves a stoichiometric
counterpart of the familiar Rosenzweig-MacArthur equations in
which the effective carrying capacity of the resource species and
the transfer efficiency of the consumer species are constrained
by stoichiometric principles. Introduction of stoichiometric
considerations in these equations (here, akin to "food quality")
allows for a rich array of ecologically realistic dynamics,
including deterministic extinction of the consumer species when
resources are abundant but of poor quality. They expand this
model in five different directions, to explore ecological
realities (i.e., complications) whose consideration has proved
illuminating in other, non-stoichiometric settings. Specifically,
they analyze the dynamics of 1) a multi-nutrient model; 2)
trophically complex models in which multiple consumer species
share a resource; 3) time delays in nutrient recycling that are a
realistic component of terrestrial ecosystems; 4) two patch
models featuring habitat heterogeneity and dispersal of the
consumer; and 5) age structured models in which juvenile and
adult consumers differ in their nutrient requirements. The
project aims to provide an analytically rigorous foundation for
burgeoning empirical research into ecological stoichiometry.
All living things, including humans, are constructed of
approximately the same set of basic building blocks, chemical
elements such as carbon (C), nitrogen (N), phosphorus (P), and
several dozen more in smaller amounts. However, different
organisms contain different proportions of these key elements in
their biomass and thus must extract these elements from their
environment to differing degrees. In many situations, the
environment does not provide these key nutrient elements in the
abundance and proportions that are optimal for organism growth
and reproduction. Thus, the chemical environment of life may set
limits on the success of organisms in various situations. In this
project the investigators use mathematical models to simulate the
flow of multiple chemical elements in natural food webs to better
understand how the requirements of living things for multiple
chemical elements establish key feedbacks between the living and
non-living world. This work is important for two reasons. First,
it may provide a better fundamental understanding of how chemical
elements move through food webs. Second, improved fundamental
knowledge of how nutrients move in the environment and how to
simulate those movements with mathematical tools may help predict
and manage natural and human-dominated ecosystems, including
those affected by nutrient inputs from human activities (e.g. N
and P inputs from fertilizer, sewage) or by global change (e.g.
effects of increased atmospheric carbon dioxide on C and nutrient
flow in the environment).